Density Functional Theory of the Electronic Structure of Molecules

This project, supported by the NSF Theoretical and Computational Chemistry Program, continues research by Robert Parr in the related areas of density functional theory (DFT), and the theoretical formulation of Ralph Pearson's concept of hard and soft acids and bases (HSAB). In one aspect of this work the Kohn-Sham orbitals are determined directly from a given electron density. A major goal is the development of an improved exchange-correlation DFT functional. To this end, a mathematical analysis of analytic properties of local and non-local functionals, such as cusp conditions and coordinate scaling conditions, will be carried out. Density functional theory provides an alternative to ab initio solution of the Schroedinger equation for the computation of the electronic structure of mater. The history of DFT dates back to work by Thomas, Fermi, and Dirac in the 1920's in the earliest days of quantum theory. In the past two decades, DFT calculations have been widely applied to predict the electronic properties of metals and other crystals, but only in recent years have DFT calculations become sufficiently accurate to permit general application to molecules. This advance, made possible by the development of new exchange-correlation functionals, reduces computation time for large molecules by at least a factor of ten. The present project, with its emphasis on analysis of fundamental mathematical aspects, is just one of several ongoing research projects which seek to develop even more accurate functionals. Many scientists anticipate that new DFT methods will one day replace the much more expensive ab initio calculations in about 80% of all applications of molecular quantum theory. If true, this will constitute a major advance in our ability to design new materials.